Collaborative Research: Dynamics of Morphogen Gradients

The project describes a series of theoretical and experimental studies of morphogen gradients, defined as the concentration fields of chemical substances that control spatial patterns of cell differentiation in developing tissues. Molecular studies of embryogenesis have identified morphogen gradients in systems as diverse as body axes specification in insects and patterning of mammalian neocortex. Current studies of morphogen gradients move in an increasingly quantitative direction and demand the development of a rigorous theoretical framework that can be used to interpret experimental results and guide systems-level analyses of pattern formation mechanisms. This project develops such a framework, emphasizing the dynamics of morphogen gradient formation. This research combines rigorous mathematical and computational analysis of a general class of reaction-diffusion models of morphogen gradient formation and application of these models to a specific pattern formation event in Drosophila embryo.

Broader impacts of proposed work include the development of a general mathematical framework for a highly conserved biological process. One of the main outcomes of proposed activity is a set of analytical results that can be used for the back-of-the-envelope analysis of pattern formation dynamics in a wide range of developmental systems. The proposed theoretical and experimental studies go hand-in-hand with the development of educational program that provides interdisciplinary training in the emerging field of developmental systems biology.